International Conference on Fundamentals of Adsorption

CTS-9421088 M. Douglas LeVan University of Virginia ABSTRACT This conference will allow the domestic participants to interact with their competitive international counterparts and exchange ideas on the fundamentals and applications of adsorption. The relevance of this meeting to the Separation and Purifications program is borne by the fact that NSF has supported the previous four conferences on "Fundamentals of Adsorption".